Research Experiences for Undergraduates in Chemistry at the University of Minnesota

Dr. Louis H. Pignolet and other members of the Chemistry Department of the University of Minnesota are being supported to provide a Research Experiences for Undergraduates (REU) site in chemistry. For the period 1995-97, twenty undergraduate students will spend ten weeks each summer actively engaged in a variety of research projects. Projects cover the traditional and newer areas of chemistry, including environmentally benign synthesis. While the NSF award supports ten students, cost-sharing by the University enables a total of 20 students to participate, at least 65% of whom are recruited nationally from institutions other than the University of Minnesota.